Magnetic Molecules, Ions, and Clusters

In this project in Experimental Physical Chemistry, Professor Weltner of the University of Florida will study matrix-isolated clusters. Measurements will be made using Electron Spin Resonance, Electron Nuclear Double Resonance, and Far Infrared spectroscopy in high magnetic fields. Information to be obtained from these studies includes structures, ground state symmetry and multiplicity, energies of low lying excited electronic states, zero-field splittings, spin densities, and other electronic and magnetic properties. Species to be studied include the Group IIIA elements, Rare-Earth metal molecules and their oxides and hydrides, and Transition Metal molecules and their oxides and hydrides. The information obtained from these studies will allow valuable comparisons with theory, and has applications in the areas of catalysis and semiconductors. Professor Weltner will trap small metal particles at low temperature and determine their structures and electronic and magnetic properties. These metal clusters exhibit widely varying reactivities and electrical characteristics depending on size and the particular metal used. The information from this study will be useful in understanding how catalysts behave, and in designing more efficient semiconductors.